Synthesis and Magnetic Properties of Large-area Periodic Arrays of Nanomagnets

9871539 Ross This grant is an interdisciplinary collaboration on the synthesis and magnetic characterization of two-dimensional arrays of 50 nm and smaller magnetic particles, known as `nanomagnets.' In this size regime, particles of ferromagnetic metals such as cobalt or nickel exhibit single- domain behavior, and mechanisms for magnetization reversal are observed that do not occur in larger particles. These periodic nanomagnet arrays are used in fundamental studies of magnetic interactions and switching. They are also examined as functional nanostructures for data storage, in which the magnetization state of each particle represents a single data bit. The goals of the research are: i) to establish a synthesis method for periodic nanoparticle arrays with particle sizes in the 10 - 50 nm range, covering areas of several square centimeters; ii) to investigate magnetic interactions, switching and anisotropy as a function of the particle microstructure, anisotropy, and geometry of the array; and iii) to design and test particle arrays for data storage applications in which each particle stores a binary bit. Using interferometric lithography, structures of 100 - 200 nm period have been made with areas of over 80 sq. cm and the aim is to extend the period down to 50 nm. To extend the scope of the investigation soft x- ray nanolithography will be employed to make large-area non- periodic structures, such as patterns with circular geometry. Fabrication of large-area arrays allows characterization by vibrating sample magnetometry (VSM) and torque magnetometry (TM), as well as by magnetic-force microscopy (MFM). Samples with a range of geometries are used to investigate inter-particle interactions using VSM techniques, and time-or temperature-dependent magnetic behavior. The results are related to a micromagnetic model for switching in arrays of nanomagnets. To integrate these nanomagnet arrays into a data storage system, reading and writing schemes will b e investigated. This award is a selection under the NSF 98-20 initiative on Functional Nanocrystalline Materials. %%% The work uses interferometric lithography to fabricate large- area nanomagnet arrays. After exposure of a photoresist using interferometric lithography to form a template, magnets of up to 500 nm in height are made by electrodeposition. This method is ideally suited to making large-area periodic nanostructures quickly and economically. In comparison, other methods for making particles on this size scale are limited to very small areas or to high cost. This fabrication method gives wide latitude to the range of structures and geometries that can be created: square, oblique or hexagonal arrays of cylindrical, disk shape, or elliptical particles, with a range of interparticle spacings with controllable saturation magnetization and controllable direction and magnitude of the magnetic anisotropy. ***